Development and Implementation of A Computer-Based Teaching System for Secondary School Mathematics

The National Science Center Foundation (NSCF) is a nonprofit organization whose goal is to improve performance of U.S. students in mathematics and science by creating new technological tools for teaching those subjects and implementing them in our schools. The NSCF's initial objective is to develop a computer-based teaching system, including courseware, to improve the teaching and learning of secondary school mathematics from algebra I through calculus. Design of a unique teaching system called Learning Logic (L2) began in October 1988, functional specifications were finalized in June 1989, and basic L2 system operating software and 15 algebra I courseware topics were completed and alpha tested in June 1990. Development to that juncture was funded by the private sector and a state of Georgia grant. National Science Foundation funding over three years will be used to complete and test operating system software and courseware for algebra I, algebra II, trigonometry, and calculus, to complete courseware design for geometry, to produce a courseware authoring system, and to deploy L2 nationally. A timeline includes the beta test of fully enhanced operating software and algebra I alpha test by seven Georgia high schools during 1990-91; the algebra I and II courseware beta test in 100 schools in 1991-1992; completion of an authoring system, completion through testing of all mathematics courseware except geometry, and enlisting 500 schools in 1992-93. The overall goal of the project is to orient school personnel and students to a prototype program for urban school improvement with emphasis on developing competence in science and mathematics.//